The Hydrodynamics of Phytoplankton Removal in Benthic Boundary Layers by Filter-Feeding Bivalves

This is an experimental study of the fluid mechanics of particle removal in turbulent boundary layer by suspension feeding bivalve mollusks. The study is motivated by the need to obtain, for a variety of flow conditions, accurate estimates of the rate at which these animals remove phytoplankton biomass from the water column. It is not clear at present how particle removal rates of a given population of bivalves should be related to pumping rates measured for single animals in laboratory experiments, or even particle removal rates measured for populations under conditions different from those found in nature. Stanford's School of Engineering will provide supplemental funds to facilitate the construction of the sophisticated flume. Extensive measurements of velocity and concentration (solutes and particles) fields over "model mollusks" (various pumping arrangements) in the laboratory flume will be used to test two interrelated hypotheses: (1) Near-bed hydrodynamics influence the flux of suspended particles (including phytoplankton) from the water column to filter-feeding bivalves, and thereby determine whether or not filter-feeding bivalves can control phytoplankton biomass in the overlying water column. (2) Bivalve feeding currents modify flow properties near the bed, particularly rates of vertical mixing of particles, and thereby play a role in determining when benthic filter feeders can control phytoplankton populations. In order to assure the direct relevance of the proposed work to estuarine systems, the experimental program will be carried out in close collaboration with USGS scientistsV studying suspension-feeding bivalve mollusks resident in San Francisco Bay.